Completely Automated Open-Path FT-IR Spectrometry (I/UCRC for Measurement and Control)

This project will develop an open-path Fourier transform infrared spectrometer capable of monitoring a variety of volatile organic compounds in a commercial environment. The instrument will be capable of operating for extended periods of time without the need for any intervention by an operator.